Collaborative Research: Impact of Aerosols on the Photochemistry during Megacity Impacts on Regional and Global Environments-Mexico City Pollution Outflow Field Campaign

This project will investigate the impact of secondary organic carbonaceous aerosols on the suppression of photochemical smog in the Megacity Impacts on Regional and Global in February-March 2006. The project will deploy a suite of ultra-violet spectro-radiometer instruments and other narrow-band irradiance instruments, together with a set of comprehensive models for the simulation of radiative transfer, box model photochemistry, back trajectories and regional photochemistry. Measurements and simulations will help define the interrelations of surface-level ozone and pollution aerosols in the Mexico City basin.

Graduate students from participating groups at the University of Houston and Colorado State University will be involved in the project. Undergraduates will receive information about the findings of the project via high school science classes.